Software Engineering Technology Program Development

PROPOSAL NO.: 0230590
PRINCIPAL INVESTIGATOR: Brzoska, Michael
INSTITUTION NAME: Eastern Washington University
TITLE: Software Engineering Technology Program Development

Abstract

The Department of Engineering Technology and Multimedia Design within the School of Computing and Engineering Sciences at Eastern Washington University plans to develop a new program in the emerging discipline of Software Engineering Technology ( SET). The SET program was conceived largely on the basis of three major factors: industrial demand within the region and state, the small number of qualified
graduates available to enter the workforce, and the increasing pool of potential students. It is Eastern Washington University's goal to develop and offer a timely and high-quality SET program that provides a thorough understanding of theory and design combined with the variety
of practical skills needed today.

The principal components of the curriculum design to be developed under this grant include:
1. A synthesis of research derived from surveys and site visits to industry and other undergraduate SET programs,
2. Program objectives and outcomes based on the research and internal discussions within the department, school and college,
3. A final list of proposed SET courses including course descriptions based on the research
4. Recommendations for integrating new learning strategies and problem-solving techniques in the curriculum,
5. An identification of potential industry mentors, internships, and industry-originated classroom projects,
6. A final list of laboratory needs including identification of equipment, configurations, and numbers of workstations,
7. A student recruitment and retention plan that focuses on nontraditional students,
8. Increased advisory board membership to include persons with a background in SET and non-technical members who can assist with both curriculum development and student recruitment and retention,
9. A timeline for obtaining final program approval, and
10. A checklist of TAC of ABET requirements.